Supernova Studies

Branch, David AST 94-17102 This research will analyze and interpret the observed photon spectra of Type I supernovae (those lacking conspicuous hydrogen lines in their optical spectra) to constrain the elemental composition of the ejected matter as a function of the electron velocity. Further studies will include calculations of theoretical spectra for comparison with observed spectra of Type Ia, Type Ib, Type Ic and Type II supernovae; determination of ejected mass, the radius of the exploding star, the kinetic energy of the ejected matter, the amount of radioactive Nickel ejected and the amount of mixing which occurs in the ejecta; and analysis of observations of radio emission from supernovae and supernova remnants in external galaxies. ***